Hands On Data: Direct--Manipulation Environments for Data Organization and Analysis

Current trends in curricular thinking reflect the recognition that working with real-world data can add richness, relevance and concreteness to the study of mathematics and the sciences. However, the current poor state of student abilities in data organization and data analysis suggests that we need ways of helping students develop the skills and concepts of data modelling -- that is, designing, collecting, organizing, interpreting and critiquing data. New computing technologies make possible a class of highly visual, highly interactive tools for working with "attribute data, " an important class of data for which database programs are currently the primary available tool. These new tools can (1) portray differences among categorical, ordinal and numerical data; (2) let students interact more direcly with the structures in which the data are embedded; and (3) put unprecedented analytical power at the disposal of students of all ages. This project pursues the conjecture that such tools can support students' learning of data modelling concepts and open up new opportunitites for the development of world-situated, inquiry-based curricula of mathematics and science which so many are noow advocating. This project will (1) identify conceptual challenges relating to data modelling, and (2) develop and test software facilities and pedagogical approaches targeted to these challenges. Research and formative evaluation will be carried ouot in clinical settings, primarily at the middle school level but with some attention to younger and older students.